Planning Grant for Nebraska Indian Community College STEM Education and Research

The purpose of this planning grant is to thoroughly evaluate Nebraska Indian Community
College's (NICC's) current STEM resources, assess STEM needs of the institution, and from this
create a comprehensive STEM development plan. At each step of the process, the Tribal
communities will be involved through Talking Circles, allowing for community input and also
bringing STEM issues to the forefront in the communities. Results of findings will be
disseminated to the Tribes and to other Tribal colleges, as well as through the internet.